Patterns of Pulsatile Progesterone in Saliva

Dr. Ellison and his colleagues will examine two samples of women, one from Cambridge, Massachusetts and the other from the Ituri Forest in Zaire, to investigate the suppression of ovarian function that is associated with young chronological age, weight loss, and moderate exercise. Saliva samples will be collected at frequent intervals throughout the day during the luteal phase of the ovulatory cycle and assayed for progesterone concentration. For each group, the frequency, amplitude and duration of progesterone pulses will be studied and patterns of ovarian function suppression (relative to 25-35 year old control groups) will be compared both within and between geographical settings. These data will provide information on ovulatory status and thus indicate fertility. The research will address two questions. First, to what extent are patterns of ovarian suppression associated with youth, weight loss, and exercise similar. Second, to what extent are the patterns of ovarian suppression observed among healthy western women similar to those observed among women leading traditional lives in a non-western natural fertility population. This research is important because of the information it will provide on the natural factors which regulate fertility. Many areas of the third world are characterized by high rates of population growth and this increase defeats economic development efforts. If the relationship between fertility and other variables such as age, diet and exercise levels are established, this will, at the minimum, provide a basis for estimating area specific future changes in population growth.